Two-Dimensional Models of Distributed Neural Processing in the Saccadic System

IBN 98-08204 KELLER. The goal of this research project is to provide a deeper understanding of how the brain controls movements in response to visual inputs. The eye movements used to examine the visual surround are called saccades. Saccadic eye movements, which rotate the line of sight in two- dimensional space, are among the most rapid and accurate movements that humans are capable of executing. At the same time the mechanical system in the orbits consisting of the eye and its muscles is relatively simple compared to multi-jointed limb control systems. Therefore the saccadic system has served as a model system for exploring the general problem of how sensory input is converted to motor behavior. In the current project Dr. Keller will develop distributed models of the sensorimotor processes underlying the control of saccades. The model is distributed because no single dynamic processing element in the model (elements in the model are meant to represent simplified single neurons in the brain) codes the control signals needed to transform visual inputs to saccades. Rather such signals are represented by large populations of active elements at each stage of the transformation. The hypothesized connectivity between various elements within layers of cells and between layers of cells are determined in the model by an optimization process that uses a biased random walk algorithm. The algorithm is generally considered to have biological relevance. One common sign of disease in motor systems is that the trajectories used to move, for example, the hand from one point to another, or the eye from one direction to another, become highly curved instead of following the straight-line approach seen in normal movements. The underlying basis for curved trajectories will be explored by placing simulated lesions in the connections or processing elements in the model. The type of feedback used in the saccadic system to insure accuracy of the movements in the face of long proce ssing delays in the visual system will be explored with the model. The model will help to unify and explain large amounts of complex neurophysiological data currently being gathered in other studies, and will also provide guidance for further anatomical and physiological research into the operation of the saccadic system. In addition, emergent properties of the model may reveal general principles applicable to distributed motor control with large ensembles of neurons.